US-Hungary Joint Fund Research on Superacid-catalysed Transformations

The primary objective of this US-Hungary cooperative research project between Dr. Mihaly Bartok, University of Szeged and George Olah, University of Southern California is to carry out systematic studies on the transformations in superacids of diols and cyclic ethers, two important groups of oxygen-containing organic compounds. The proposed research will include the studies of stereoisomers and deuterium-labelled compounds with the aim of getting information on the mechanism of the transformations taking place. Based on these observations selective synthesis of certain compounds (carbonyl compounds, unsaturated alcohols, dienes) can be expected. The results will contribute to the chemistry of carbocations. Funds for the project are awarded through the U.S.-Hungary Joint Fund, Budapest in accordance with established guidelines.